Stochastic Methods for Water Resources Management

This research project focuses on the generic problems of identifying and managing the causes and consequences of uncertainty in Water Resource System Planning, Design, and Operations. The objective is the development of better methods and approaches that integrate consideration of uncertainty into management decision making. Derived probability distributions for system outputs are investigated and, where possible, derived for system outcomes. Surrogate distributions or indicators are investigated where it is not possible to derive the probability distributions. The integration of such probability information into a decision making process is approached from simple analytic integration of probability functions and damage functions to more complex models of management decision- behavior.